Physiological Instrumentation

Laboratories in Anatomy and Physiology courses are expanded in scope and breadth by computer-based technology designed to gather and analyze physiological data. Students measure and analyze data related to the cardiovascular, respiratory, skeletal, muscular and nervous systems. Equipment includes Macintosh LC microcomputers, multi-channel analyzers, isolated square wave stimulators, and printers, interfaced with Inteletool Physiogrip, Cardiocomp, Flexicomp, Spirocomp, Intelipulse, and Digestion- Nutrition systems.